Development of Software and Curricular Materials for the Incorporation of Computer Simulations into the Undergraduate Physics Curriculum

Physics (13) Curriculum materials and Java-based software are being developed to make it easier for
faculty to incorporate computer applications into the undergraduate physics curriculum.
In particular, the principal investigator, in colloboration with Jan Tobochnik of
Kalamazoo College and Wolfgang Christian of Davidson College, is developing an extensive
and powerful library of Java utilities and templates that make it relatively easy to
develop computer simulations and animations in a variety of contexts. The software is
platform independent and open source and available at no cost. In addition, the third
(Java) edition of our popular undergraduate level computer simulation text is being developed
during the time frame of the work.